Mathematical Sciences: Markov Properties and Stochastic Partial Differential Equations

The principal investigator will continue his work on multiparamter processes and random fields. These stochastic processes describe random phenomena whose probabilistic properties are both spatial and time dependent, such as the time evolution of a one-, two- or three dimensional medium subject to random excitation. An important question in this area of probability theory is: if one observes this random field in a certain region of space-time, how does one estimate its behavior elsewhere? The investigator will study the relationship between this prediction problem for a particularly important class of random field, their Markov properties, and the behavior of solutions of certain stochastic partial differential equations.